Multimedia Education Research Project

9708393 Nikias Funding is provided to help the NSF Engineering Research Center, the Integrated Media Systems Center, establish the IMSC Multimedia Academy. This endeavor is a community outreach educational program designed to meet inner city industry demand for a workforce trained in multimedia technology, as well as a model school to-work post-high school education program. ***